EAGER: Quantifying National and Economic Security Risks and Opportunities in the International Semiconductor R&D Landscape

Global leadership in science and technology is becoming increasingly distributed, with rapid advances in strategic technologies occurring across multiple countries. At the same time, governments are implementing new research security policies to protect national interests while preserving the openness that has long supported scientific discovery and innovation. However, the effects of these policies on research, innovation, and international collaboration remain poorly understood, and many questions remain about how to balance security with scientific progress. This project addresses that challenge by developing a new interdisciplinary framework for advancing research security in semiconductor technology, a foundational technology that underpins the economy, national defense, artificial intelligence, and future technological innovation. By combining expertise from engineering, computer science, and the social sciences, the project will improve understanding of global technology competition, identify opportunities to strengthen United States innovation capacity, and provide evidence to support more effective research security policies. The resulting knowledge will help inform decision making that advances scientific leadership, economic prosperity, and national security.

The project investigates how global scientific capabilities, supply chains, and knowledge networks shape research security risks and strategic opportunities in semiconductor technology. Drawing on the concept of net assessment and recent advances in computational analytics, the research team will develop methods to map global strategic assets, technology trajectories, and interdependencies; identify current and emerging research security risks; and evaluate opportunities to strengthen United States strategic advantages through innovation and collaboration with domestic and allied partners. The project will produce an interdisciplinary analytical framework, new data-driven methods and tools for research security assessment, and evidence-based insights that can support researchers and policymakers in designing research security policies that protect critical technologies while sustaining scientific innovation and collaboration.